Symposium GG "Solid State Chemistry of Inorganic Materials III"; Boston, MA

The Materials Research Society Symposium on Solid State Chemistry of Inorganic Materials III will be held in Boston, MA November 27 - December 1, 2000. The goal of the conference is to facilitate multidisciplinary interactions and information exchange within a broad spectrum of researchers, to include CAREER grantees, and top postdoctoral scholars and graduate students working in priority areas of the broad field of solid-state chemistry. The NSF funds will be used exclusively to offset the expenses associated with attending the symposium for graduate students and post doctoral scholars, junior faculty and selected plenary speakers in the area of solid state chemistry of inorganic materials.
%%%
The Solid State Chemistry community continues to have direct impact on important technological areas that are crucial to advancing society through the design, synthesis and application new materials. Examples include porous strength composite structural materials. Since these technical areas are of very high priority to industry, students educated and trained in these multidisciplinary areas involving solid-state chemistry compete very well in the job market and go on to contribute in many significant ways to the global economy.